A Fundamental Framework for Health-Conscious Optimal Control in Battery Energy Systems, with Application to Lithium-ion Batteries

Abstract
1130796
Hosam Fathy
Penn State University

Research Objectives: This proposal addresses the fundamental problem of optimally controlling battery systems for performance, efficiency, and health. The proposed research will use electrochemistry-based models for optimal battery management, with application to health-conscious battery charging, grid energy storage, and hybrid underwater vehicles.
Scientific Merit: The proposed research will add three original contributions to the literature. First, it will furnish a novel framework for combined order and index reduction in electrochemistry-based battery models, thereby making these models more conducive to optimal control. Second, it will use boundary control theory to optimize battery charging/discharging for long-term health. Third, it will address the optimal power and thermal management of a battery pack as a single integrated problem. Together, these contributions have the transformative potential to bridge the current gap between the electrochemistry and control technologies.

Broader Impact: The proposed research make a major contribution to battery energy storage and power management. The research discoveries will furnish two new courses on energy system modeling and optimal power management, and support two students in a lab with a solid record of recruiting and training outstanding underrepresented minority students. The PI will disseminate this research to the electrochemistry and control communities — as well as existing industrial collaborators — through an edited textbook and web-based seminar series. Finally, the research will enable the PI to incorporate a stronger battery energy storage components into existing toy kits for K-12 student education and outreach.